Hyperbolic Geometry and 3-Dimensional Topology

The work supported by this grant is bringing to bear on the study of
hyperbolic 3-manifolds methods from the analytic theory of Kleinian
groups, geometric and algebraic topology, algebra and combinatorics.
One group of projects aims at understanding, in a quantitative way,
how the volume of a hyperbolic manifold reflects its underlying
topology. Another project studies the relationship between the
algebraic rank of a hyperbolic 3- manifold and its Heegaard
genus. A third group of projects addresses the construction of
hyperbolic manifolds by the Dehn filling construction.

A hyperbolic manifold is a space which is locally modelled on the
non-euclidean geometry of Lobachevsky, Bolyai and Gauss, in which the
sum of the angles of a triangle is less than pi. Besides being of
fundamental importance for classical geometry and number theory,
hyperbolic manifolds have long been known to play a central role in
three-dimensional topology. This has been newly confirmed by
Perelman's announcement of a proof of Thurston's geometrization
conjecture.